A Strontium Isotopic Profile through Hydrothermally Altered Ocean Crust

9314218 Alt In this project, the PIs will analyze hydrothermally altered oceanic crust recovered at ODP Hole 504B for Sr isotope ratios and trace element abundances. They will analyze whole rocks, mineral separates and vein minerals. Besides data gathering, their fundamental goal is understand water rock interaction and isotopic flux at sub sea floor hydrothermal systems. ***